Numerical Analysis & Applications of Orthogonal Expansions on Unbounded Domains

The investigator and co-workers study the theory, implementation, and applications of spectral methods on unbounded domains. The term spectral method as used here includes not only the traditional applications involving differential equations, but also the computation of integral transforms and special functions. The central theme is the optimization of the accuracy of such expansion methods by judicious parameter selection. This is accomplished either through theoretical asymptotic analysis, or via numerical algorithms where the analytical approach falls short. Target applications include scattering problems, the computation of integral transforms, and nonlinear waves. The first part of the project involves, among other things, the computer solution of certain fundamental problems arising in quantum mechanics. The second part is devoted to the computation of integral transforms. These formulas arise ubiquitously in science, in areas such as viscoplasticity, geophysics, and shock waves in diatomic chains. In industrial applications these transforms can seldom be worked out by hand and efficient computer codes are required for their computation. Through the use of mathematical analysis the investigator aims to optimize the efficiency of such codes. The third part of the project involves the computer simulation of waves arising in areas such as laser optics and water. The challenge here is to ensure that the computer output is a true reflection of the actual physics of the problem. The project is expected to have an impact not only in numerical mathematics, but also in various branches of technology and engineering such as high-performance computing, materials science, and optical science and engineering.